NSF Young Investigator

9458102 Lockery There is growing evidence that human behavior is strongly influenced by genes. Because many behavioral genes are believed to exert their influence through the nervous system, it is essential to understand how genes affect the structure and function of individual neurons. A promising approach to this problem is to study how genes control the behavior of simple animals. In many ways, the tiny (1 mm long) roundworm Caenorhabditis elegans is ideal for this investigation: the connectivity among its 302 nerve cells is known completely; the neural circuits for its behaviors have been identified; over 150 genes affecting behavior have been found; and cloning a gene to determine its function is easier than in almost any other animal. The main objectives of my research, therefore, are: (1) to make electrophysiological recordings from identified neurons in C. elegans to determine how behavior is produced in normal animals, and (2) to determine how genes affect the structure and function of the nervous system in C. elegans by recording from identified neurons in behavioral mutants. This research will deepen our understanding of the causes of behavior in this increasingly important system and, because C. elegans have homologs in mammals, it will very likely expand our knowledge of the genetic basis of behavior in more complex organisms, including humans.